RIMI: "The Informal Economic Sector on the U.S. - Mexico Border"

The proposed project involves interdisciplinary, comparative research on the effects of public policies on the informal economic sector. A collaborative faculty-student team will generate data on informal economic participants, their work, and its returns in six matched neighborhoods of Juarez and El Paso. Interviews will also be conducted with policymakers to clarify how policies are formulated and implemented on the informal economic sector. Existing data from censuses and other data sets will expand findings from this study. This research will advance knowledge about state- society relations on an international border now experiencing change associated with free trade. The research will also be relevant for the policy implications that flow therefrom.